Electric Field Interactions with Neural Tissue

The goal of this research project entitled "Electric Field Interaction With Neuronal Tissue" is to study the mechanisms by which electric fields can control and modify the activity of neurons. Electric fields can be easily generated near and around neurons in the brain by placing electrodes in specific locations and injecting known amounts of current. Previous experiments have shown that currents applied at very small amplitudes are capable of preventing the activity of neurons and to interfere with their firing patterns. The research is aimed at the determination of the basic mechanisms underlying these effects. The results of the research proposal will allow us to better understand how electric fields can control the activity of neurons and may lead to the design of a method to prevent abnormal neuronal activity such as in epileptic seizures.